Academic Support for 5th Annual Smart Materials and Structures Workshop to be held April 15-16, 1992 in Blacksburg, Virginia

This project supports the development, publication and distribution of Workshop Proceedings for student and faculty participants at the Fifth Annual Smart Materials and Structures Workshop to be held on the Virginia Polytechnic Institute campus in Blacksburg on April 15 and 16, 1992. The publication of the proceedings by an outside commercial publisher will include presentations by the international and national academic, industrial, and governmental smart structures research community. Dissemination of Workshop results through the Proceedings being made available to the research community will lead to the advancement of structural system innovation related to dynamic building response and seismic performance needs.